Two One Week Workshops for Social Science Faculty on Exploratory Data Analysis Using Microcomputers

Two one week workshops, for twenty social scientists each, are being conducted. The workshops are covering techniques of exploratory data analysis using a statistical package particularly suited for graphical forms of data analysis, "Stata." Participants are developing skills in using and teaching robust statistics, analytical graphics and data transformations. Exploratory data analytic techniques, such as data smoothing, median polishing, re- scaling and transforming data using the ladder of powers, five number summaries, box and whisker plots, and stem and leaf charts, are emphasized. The workshops also illustrate pedagogical methods for teaching EDA techniques at the undergraduate level and establish a professional network of EDA-oriented faculty. The significance of the project to undergraduate faculty and students lies in the use of exploratory data analysis techniques as interesting and useful alternatives to traditional confirmatory statistics.